Patterns, Stability, and Thermal Effects in Parametric Gain Devices

The goal of the work outlined in this proposal is to build a more
complete understanding of spatially localized structures in
quadratically nonlinear parametric gain devices, focusing on the
stability and dynamics of these structures in a self-heated
medium. The scope of the proposed work includes the development
of a numerical model capable of incorporating the multiple
temporal and spatial scales necessary to characterize the impact
of absorption-induced heating of the parametric gain media, and
analysis of more tractable model equations such as the
parametrically driven nonlinear Schroedinger equation coupled to
the one- or two-dimensional heat equation.

This research is important for several reasons. The most
immediate of these lies in its applicability to parametric gain
devices, such as optical parametric oscillators, used for
conversion of optical fields to frequencies in the far-infrared
region. Such devices are very important for spectroscopic
applications, including the detection of environmentally harmful
agents or chemical weapons, and for military countermeasures,
including jamming of infrared-based missile guidance systems.
From a more theoretical standpoint, the proposed research draws
from several areas that have recently made significant advances in
maturity, including multiscale simulation techniques, rigorous
collective coordinate reductions, and the dynamics of patterns in
dissipative equations.